Studies of the Physics and Chemistry of the Atmospheres of Terrestrial Planets

The atmospheres of the terrestrial planets have evolved markedly over the past 4.5 billion years since the solar system formed out of a cloud of interstellar dust and gas. Venus appears to have lost an ocean of water by thermal escape from the planet, leaving behind traces of water highly enriched in Deuterium. The influx of small comets is a source of water for Venus, EArth, and Mars, and measurements of the present water content of the Martian atmosphere places severe limits on the influx rate of such comets. This award is for studies of evolution of the atmosphere of the terrestrial planets, including spectroscopic observations of hydrogen escaping from the Earth and from cometary nuclei.